High-Energy Physics Consortium: Development of a Level-2 Trigger for the Study of 2000GeV Proton Antiproton Collisions

This proposal requests support for event trigger development and electronics acquisition for the D0 experiment at Fermilab. This project will allow the detector to be effective when exposed, the higher beam intensities are participating in this effort. New real time triggers to handle higher rates are essential, and will involve novel combinations of serial and parallel processors to do the job.